Postdoctoral Research Fellowships in Chemistry

Scott M. LeGrand has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. LeGrand's doctoral degree was from the Pennsylvania State University under the supervision of Professor Kenneth Merz. Dr. Le Grand will continue research at UCLA under the sponsorship of Professor David Eisenberg. Dr. LeGrand's postdoctoral training will provide him with the skills necessary to develop innovative approaches to tertiary DNA structure prediction and specifically algorithms for the protein folding problem. Longer term, he plans to study the use of an evolutionary arms race to develop knowledge-based potential functions for protein tertiary structure prediction. %%% The Postdoctoral Research Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.s and attract them into meaningful careers in contemporary chemical research and teaching.